MCAA: Role of Metal Ions in the T- to R-Allosteric Transition in the Insulin Hexamer

This Mid-Career Advancement Award (MCAA) by the Inorganic, Bioinorganic and Organometallic Chemistry program supports research by Professor Webe W. Kadima at the State University of New York at Oswego to pursue training in NMR techniques and data analysis methods used for the determination of protein structure. Dr. Kadima will use high field NMR technology to study the role of metal ions, such as Cd(II) and Fe(III), in the T- to R-allosteric transition in the insulin hexamer (R6) in solution.

The effects of metal ions on the association and conformational equilibrium of insulin complexes with metal ions will be investigated and the results applied to understanding the behavior of insulin in solution and its regulation and function in vivo. The PI will receive training at nearby institutions in protein structure determination methods, which will be brought to SUNY Oswego to enhance her research involving undergraduates.